Excitation and Ionization in Atomic Collisions -- General Theory and Accurate Numerical Calculations

This award continues an extremely productive program in the theoretical treatment of electron collisions with atoms and ions. The main approach, the R-matrix with pseudostates method, is used to examine electronic excitation, the calculation of Stokes parameters and electron impact ionization of both simple and complex atomic targets. Close collaboration with other theorists and experimentalists in North America, Europe and Australia enable a comparision of methods as well as providing experimental validation of the overall approach. The PI has been extrordinarily successful in training undergraduates in atomic physics.